"Correspondent Science News" Reports for Television

Prism Productions will manage a transition to economic independence for the "How About..." science news insert series featuring science journalist Don Herbert. "How About..." has for a decade provided science new inserts for local commercial news broadcasts around the country, supported by NSF and the General Motors Corporation. The series airs regularly on more than 140 commercial television stations in markets representing 70% of american households. In an effort to establish independence and a self-sustaining economic base, the proposers will redesign the series to accommodate recent trends in local news broadcasting, develop a mix of 90 second and 3-4 minute feature segments, and seek corporate sponsors for the series, newly titled "Correspondent Science News." The new package will be offered to stations on a barter basis. This award-winning series has reached many households in the country with accurate and professional science reporting. With the conclusion of NSF support after an extended period, this award will maximize the opportunity for independent continuation of the series.